Space-Time Coding for Wireless Communications

Space-Time Coding for Wireless Communications
Michael P. Fitz and Urbashi Mitra
Proposal 9980616,
The Ohio State University

This research will extend the state of the art in channel coding for
multi-antenna communication systems. It has recently been shown that
the capacity of a wireless communications system can be greatly
increased if multiple antennae are used both at the transmitter and the
receiver. Furthermore, a method for achieving such gains is to
introduce controlled redundancy (coding) in the transmitted data
sequence spatially as well as temporally, which is the conventional
scheme. This area of research is still quite new and several key
problem areas need to be addressed. For example, computationally
efficient methods for finding space-time codes are necessary.
Typically, the wireless channel is time-varying and it is not always
possible to achieve good estimates of the channel conditions; thus
evaluating the robustness of space-time codes is of value. A related
project is to consider the interplay of space-time coding and decoding
methods with algorithms designed to estimate the channel and other key
communication parameters. Turbo codes have recently emerged as
powerful codes for achieving near Shannon capacity, thus space-time
generalizations of such codes will be studied. Finally, much of the
current work on space-time coding is for narrowband time division
multiple access systems, thus we shall consider space-time code design
and decoder design for wideband code-division multiple-access systems
as well.

The first research thrust will focus on the development and analysis
of improved search techniques for space-time trellis codes. Current
methods for searching the distance spectrum of space-time trellis codes
can be computationally expensive. Methods for reducing the size of the
error state trellis coupled with reduced complexity trellis search schemes
will be explored. The next focus is on evaluating the robustness of space-time
codes under realistic channel conditions. In addition, space-time coding
for parametric channels will be considered. Thus, constrained channel
uncertainty will exist and code designs for such scenarios will be developed.
The third research focus will be on space-time turbo codes as one method to
achieve robustness to a variety of channel conditions. The random--like
structure of turbo coded schemes hold some promise of mitigating the possible
interactions between the code structure and the channel characteristics.
Space-time code designs for CDMA channels will be investigated in the
fourth research thrust. CDMA signals have a larger dimensionality and
thus the space-time code design is different from that for single-user
systems. In addition, CDMA signals in a multipath channel will result
in different optimal code designs. The final research topic will consider
receiver designs in the context of space-time coding. That is, channel
estimation and synchronization for space-time coding and modulation will
be investigated. Algorithms which exploit the properties of space-time
codes will be designed. In addition, the performance dependence on accurate
channel estimates and synchronization will be analyzed.